Typechecking for PCN

This award is to support a postdoctoral associate to work in experimental computer science. The associate, Michael Fagen, will work with Dr. Robert Cartwright on problems involving compilers for parallel languages. The research involves using type information to aid the programmer and to allow efficient compilation. The original research was done with functional sequential languages. The proposed research will be to extend these results to imperative parallel programming languages. In particular, the Program Composition Notation (PCN) language will be used as a testbed for the postdoctoral associate's ideas of migrating soft typing from the sequential functional domain to the parallel domain.